Workshop on Research Needs in Microcontamination, Dallas, Texas, May 5-9, 1986

The understanding of contamination in clean industries, such as electronics, optical fabrication, and pharmaceuticals, is becoming a limiting factor in the development of advanced technologies. The goal of this workshop is the communication of contamination research needs in private industry to academic and other researchers with the capability to develop new approaches. The association of the workshop with the Instritute of Environmental Sciences Annual Technical Meeting to be held at the AMFAC Hotel in Dallas, Texas, May 5-9, 1986, will foster good attendance. The IES meeting atracts over 700 professionals in contamination control and has a large exhibition of instrumentation and equipment. The proposed workshop will provide an interdisciplinary forum to allow focusing of research resources in the next several years. Proceedings of the workshop will be widely distributed.